CISE Research Infrastructure: Effective Information Access: Computer Science Research Fundamental to Creation of a National Information Infrastructure

9503064 Hollan This award provides support for visualization facilities, servers to support distributed simulation, and a high-speed cluster network. In addition the University of New Mexico will establish a National Information Infrastructure (NII) Experimental Laboratory in the Science and Engineering Library to serve as a shared research testbed, as well as to facilitate efforts in distributed simulation and research collaborations in Biology, with the Santa Fe Institute and the National Laboratories. The Laboratory equipment will include graphics workstations connected via a high-performance local area network to high-end symmetric multiprocessing systems, an SGI Power Onyx and Power Challenge, and to remote high-performance facilities at the Maui High Performance Computing Center's IBM SP-2, the Sandia National Laboratory's Intel Paragon, and the Los Alamos National Laboratory's CM-5. The University will build on its existing strengths in adaptive computation, human computer interaction, information analysis, and simulation to focus on adaptive multiscale interfaces; distributed computation, communication, and security for network-based applications; data mining and filtering; and improved access to distributed simulation.